Turbulent Thermal Convection in Rotating and Sratefied Fluids

Three related investigations are to be conducted in the area of environmental fluid mechanics, in particular density stratified turbulent flow. The approach is essentially experimental. The three topics are: mixing between turbulent layers of different properties separated by a laminar region, the horizontal outflow generated near the ground by heavy descending air masses, and mixing and internal wave generation in a variable properties stably stratified turbulent shear flow. The research is relevant to oceanic mixing, pollutant transport in the atmosphere, and wind shear due to microbursts.